National Earthquake Information Network; a Workshop

; R o o t E n t r y F H B C o m p O b j b W o r d D o c u m e n t - O b j e c t P o o l B B 4 @ ! F Microsoft Word 6.0 Document MSWordDoc Word.Document.6 ; , , < @ ` $ , h < ` $ , ( ` $ 9525946 Moehle The National Information Service for Earthquake Engineering collects and organizes information on earthquake engineering and allied fields and disseminates it to practicing engineers and related professionals, students, educators, researchers, government agencies, and the general public. This project will involve a workshop which will bring together many of the primary information producing organizations in earthquake studies and provide a venue for strategic planning toward a national information network in earthquake studies. *** Oh +' 0 S u m m a r y I n f o r m a t i o n ( $ H l D h R:\WWUSER\TEMPLATE\ABSTRACT.DOT Marcellia Kemp Marcellia Kemp @ A @ !: A @ g B ( @ Ik Microsoft Word 6.0 2 e = e * - * " " " " " " : 8 8 8 8 8 8 B 8 j L P P P P P P P R T O " P P P P P P " " P L P P P P " P " P " * " " " " P P 3 P 9525946 Moehle The National Information Service for Earthquake Engineering collects and organizes information on earthquake engineering and allied fields and disseminates it to practicing engineers and related professionals, students, educators, researchers, government agencies, and the general public. This project will involve a workshop which will bring together many of the primary information producing organizations in earthquake studies and provide a venue for strategic planning toward a national information network in earthquake studies. *** , * & * N u ` & * $ $ $ $ , K @ Normal a c & @ & Heading 1 U ^ $ @ $ Heading 2 x U " A@ " Default Paragraph Font @ Footer ! @ Header ! " @ " Normal Indent , N